Positional Cues and Differential Gene Expression in Developing Carrot Embryos

The objective of this research is to build a base of correlative knowledge to help define the developmental program of somatic carrot embryogenesis. Srategems have been developed for manipulation and analysis of single embryos with greater resolution and precision than previously available, and will be employed to seek correlations among temporal and spatial patterns of polypeptide composition and electrical current flow. Special attention will be paid to the embryonic progression from globular to heart stage, and to regenerating root tissue, and attempts will be made to define developmental cues based on this data. Further characterization of the process of root reregeneration will be made through detailed immunocytochemical examination. These investigation will improve our understanding of carrot embryogenesis at tissue and cellular levels of resolution, and provide a context for studies of molecular control of this process.